I/UCRC Interagency Agreement (J369): Friction Stir Spot Processing of Aluminum Alloys Research to Augment the I/UCRC Center for Friction Stir Processing

IIP 1063567
South Dakota School of Mines and Technology
West, Michael K.

This award provides funding to augment the ongoing research program and to provide a membership for the U.S. Army Research Laboratory to South Dakota School of Mines and Technology, Industry/University Cooperative Research Center for Bioenergy Research and Development.

The interagency funds for a membership in the I/UCRC increases the research activities to expand the knowledge base of the discipline.

The Federal Agency interaction in the I/UCRC creates more potential for technology transfer of the research results and expands the graduate students interaction for future employment.